Computational and Algorithmic Representations of Geometric Objects - CARGO: The Geometry of Optical Paths: Intrinsic Properties, Complexity of Approximation, and Applications

DMS-0138440
James R. Arvo

The most familiar principle of geometrical optics asserts
that a ray of light impinging on an ideal mirror will emerge
in such a way that the angle of reflection equals the angle of incidence. The trajectory of a photon (or a billiard ball,
using another common metaphor), is thus completely determined
by its initial conditions and the geometry of the mirrors it subsequently encounters. The geometry of such trajectories
has been of interest in numerous fields, including plane
geometry, computational geometry, and computer graphics,
yet they comprise a vanishingly small subset (a set of
measure zero) within the class of all optical paths that
fall within the purview of geometrical optics. In particular,
optical paths resulting from non-specular reflections
constitute a vastly larger class. Moreover, they are of far
greater importance to image synthesis as they result from
physically realizable models of reflection. Nonetheless,
non-specular paths have thus far been largely overlooked as
a source of interesting geometrical problems. The main
objective of this research is therefore to launch an
initial investigation into the basic geometrical properties
of non-specular optical paths, both in the traditional
combinatorial sense, such as finding a optimal paths
connecting two points, and in the continuous sense, such
s finding extremal paths, or computing the measure of all
k-segment paths connecting two regions. A secondary
objective is to explore connections with probabilistic
methods, such as standard Monte Carlo visibility techniques
and Metropolis light transport, which will likely be the
first direct beneficiaries of this work.

This work is expected to contribute primarily to the
mathematical foundations of image synthesis by identifying
optical paths as interesting geometrical entities in
themselves, and by exposing some of their fundamental
properties in terms of density, measure, and computational
complexity. Moreover, it is expected that this new
perspective will ultimately be instrumental in studying
the accuracy and computational complexity of realistic
image synthesis in general, about which very little is
known currently. While the problems investigated here
will invariably have much in common with previous work on
direct and indirect illumination problems in computational
geometry, the approaches taken will have a distinctly more
continuous flavor, drawing heavily from fields such as
measure theory, differential geometry, and geometric
probability. Finally, it is expected that this work will
serve as a segue into a longer-term investigation of
computational complexity in computer graphics by
establishing basic tools and connections with other disciplines.